Mass Transfer and Transport Processes in Two Phase Flow

The general objectives of this project are to develop a new theoretical understanding of how the transport of mass to a wall or at a gas/liquid boundary is related to fluid mechanical factors, to understand the turbulent transport of particles and droplets, to understand how turbulent transport of molecular species is related to Langrangian statistics, and to carry out studies of finite amplitude interfacial waves that are generated by an air flow. Important aspects of this work are that combined laboratory and supercomputer experiments will be conducted and that newly developed optical techniques will be used to study Langrangian turbulence characteristics of particles. Five sub-projects are under investigation: (1) Mass transfer at a solid boundary; (2) Optical studies of the turbulent transport of particles; (3) Computer studies; (4) Non-linear effects in wave generation; (5) Mass transfer at a gas- liquid boundary. The improved theoretical understanding of turbulent transport in a fluid and to a wall could provide better ways to compute concentration (and temperature) fields; but, just as important, it will help in understanding how to control or enhance mass transfer rates. The results from basic studies of particle transport and of wave generation will improve our methods to predict the performance of multiphase flow systems.